Geometric Aspects of Operator Space Theory

The theory of operator spaces has advanced very rapidly during the past ten years, combining ideas and techniques from Banach space theory and the theory of C*-algebras. The investigator will concentrate on three aspects of geometry of operator spaces: examples of operator spaces with few completely bounded maps, the structure of non-commutative L^p spaces, and various extension properties.